Analysis of Laser Fluorescence for Biosensing

ANALYSIS OF LASER FLUORESCENCE FOR BIOSENSING ABSTRACT This proposal seeks to develop a new optical technique for sensing biomolecules. The sensing principle is based on laser induced fluorescence. A fiber optic laser fluorescence probe is easily sterilizable for use in fermentors. This type of probe is inherently safe, has low signal attenuation and high data transfer rates, and can be multiplexed. Experiments with mixtures of known concentrations of fluorophores and pulp liquor will be carried out to develop this technique. A focus of the proposal will be on numerical approaches to deconvolute multicomponent fluorescence spectra. To overcome the problem of lack of specificity, a mathematical technique of partial least squares (PLS) analysis will be employed. Several approaches to improving the PLS method, including neurocomputing, are to be investigated. The proposed research involves collaboration between researchers at the University of Maryland and the National Bureau of Standards (NBS). Experimental data will be taken at the NBS facility in Gaithersburg and analyzed at the University of Maryland in College Park.